Focus on Retention in Cohorts of Engineering Students

The College of Engineering at the University of Texas at Arlington (UTA) will implement FORCES (Focus On Retention in Cohorts of Engineering Students) to create two cohorts each with 21 engineering students supported by scholarships in their freshman and sophomore years. FORCES cohort students will take classes together and a peer counselor-taught class covering academic skills and engineering topics. Additionally, the FORCES program will provide student support academic activities during all semesters. The FORCES cohort program will be open to all incoming freshman engineering majors with financial need who have acceptable admission credentials and test ready for Pre-Calculus I; emphasis will be placed on recruiting students historically underrepresented in engineering.